Model Programs in Education: Engineering and the Disabled

Through a two phase endeavor, this investigation is initiating a model program that will make the disabled aware of their potential to become engineers, and is establishing innovative means to bring these individuals into the engineering education system. Phase one special education personnel in private and public schools and others who have direct interaction with the disabled to explain the goals of the program and enlist their aid in achieving these goals. %%% In similar fashion, engineering firms and profesesional organizations are being approached to make a commitment to the education and employment of the disabled. %%% The work of the second phase involves exploring for ways to make engineering education possible and attractive to the disabled. Recruited tools are being divised, from interactive computer programs to incentive booklets. An outreach seminar is being planned whose main purpose will be to make an engineering career for the handicapped a reality in the minds of the disabled and those who work with the disabled. %%% A third phase is planned and would see the model program expanded to a nationwide forum. The lessons learned and knowledge gained in the current project will be transferred to concerned persons thought regional centers at strategic locations in the United States.